Theoretical Studies in Chemical Kinetics and Related Problems

Rudolph A. Marcus of the California Institute of Technology is funded by a grant from the Theory and Computational Chemistry Program of the National Science Foundation to continue theoretical research in electron transfer in large biomolecules and at interfaces. Eight research problems will be addressed: 1) electron transfer and scanning tunnel microscopy (STM) across ordered monolayers; 2) nonadiabaticity and electron transfer in proteins; 3) charge transfer rate constants at semiconductor electrodes; 4) bias dependence of STM images of organic monolayers on graphite; 5) electrochemical inverse photoemission; 6) sequential approach to electron transfer in proteins; 7) intramolecular dynamics and unimolecular reactions; 8) mass-independent isotope effect. This research will address the problem of charge transfer in large biomolecules and will therefore provide clues for the understanding of the mechanism of such processes as photosynthesis. It will also clarify the determination of the structure of surfaces, and will help in the construction of electronic devices, for example. The charge transfer research has also implications for corrosion and batteries.